AMP: Puerto Rico Alliances for Minority Participation (PR-AMP)

The Resource Center for Science and Engineering of the University of Puerto Rico has formed a consortium with the major universities and systemic research projects on the island including the CRCM, EPSCOR, and MRCE, and through the Mendez foundation Project Causa. The Alliance will focus on the following foci: 1. expansion and strengthening of college transition programs, 2. major curriculum assessment and development, and 3. the expansion of graduate programs. The major thrust of the PR-AMP will be to transform, in a fundamental way, science and engineering education through the undergraduate curriculum. Specific quantitative and qualitative indicators of the project's impact will be put in place in order to disseminate the Project's results.